Triboemission of Charged Particles from Ceramic Surfaces and Their Role in Tribochemistry

9531661 Furey Triboemission particles emitted from sliding ceramic pairs will be measured and characterized by type and amount as functions of time, applied load, velocity, ambient atmosphere, and the presence of various compounds. Their possible role in the formation of tribopolymers will be evaluated theoretically and confirmed experimentally through tests with various addition-type monomers in the sliding contact zone, followed by examination of the wear scars and the surrounding surface by surface analytical techniques. ***